Digital Government: Information Technology Accomodation Research: Creating a doorway for Universal Access

EIA-9876745
Nass, Clifford
Stanford University

Digital Government: Information Technology Accommodation Research: Creating a Doorway for Universal Access

This proposal would continue the work of the Archimedes project at Stanford's Center for the Study of Language and Information. Using the needs of the disabled as drivers, CSLI will pursue research on a number of different access modalities. One example is the Total Access Processor, a hardware/software abstraction layer between a disabled individual and the PC he/she uses, since their custom environment is tightly woven interwoven with their PC hardware, operating system, applications, etc. TAP addresses the problem that occurs when the disabled individual upgrades hardware or software. This is of interest to the Census Bureau, which has goals in hiring large numbers of disabled individuals for the decennial census. The Social Security Agency and the General Services Administration are interested for similar reasons, and the National Mapping and Imagery Agency is interested in the eye-tracking work of Scott related to productivity of individuals doing feature identification.